RUI: Kaon and Phi Meson Rare Decay Studies at the University of Richmond

***
9803763
Rubin
Through this proposed activity, the PI can carry out a program at an undergraduate institution, that completes the analysis of rare decays of the K-meson in experiment E871 at Brookhaven laboratory. Through a study of such decays, the effects of new physics outside of the Standard Model can be found.
***